Dissertaton Enhancement: U.S.-Australia Cooperative Project
on Supernova Search at Mt. Stromlo

9816291
STUBBS

Professor Christopher Stubbs and others at the University of Washington, in collaboration with researchers at Mt. Stromlo Observatory, Australia, are engaged in a search for supernovae (SNe) in dense clusters of galaxies. This will contribute to our understanding of the geometry of the universe, to our understanding of distortions in the expanding universe, and to our knowledge of the final stages of stellar evolution. The U.S. group has 5% of the time on the MaCHO 1.3m telescope and wide-field imaging camera, an instrument which is essential to the success of the project, located at Mt. Stromlo, Australia. This award will support the travel to Mt. Stromlo and per diem of Professor Christopher Stubbs' graduate student, David Reiss, for three trips a year for two years during which he will be working on his Ph.D thesis. The Australian counterpart is Dr. Brian P. Schmidt of the Institute for Advanced Studies, Mt. Stromlo and Siding Spring Observatories, Australia.